EMSW21-RTG Research Training in Geometry and Topology at Michigan State University

Abstract

Award: DMS-0353717
Principal Investigators: Ronald A. Fintushel, Efstratia Kalfagianni,
Thomas H. Parker, Jon G. wolfson

The goal of this proposal is the enhancement of the research
training environment in geometry and topology at Michigan State
University. Our goal is to use increased resources to improve:
1. Recruitment at all levels --- undergraduate, graduate, and
postdoctoral.
2. Graduate training, especially in terms of the diversity of
seminars, course offerings, and reducing the time to obtain a
Ph.D.
3. The experience of postdoctoral fellows and their preparation
for a tenure-track position.
4. Undergraduate participation with the Geometry/Topology
research group.
5. Interaction among students and faculty at all levels.
6. The research environment at all levels with a regular program
of seminars and visiting mathematicians.
The graduate students and postdoctoral assistants who will be
mentored under this proposal will contribute to research on our
main focus, low-dimensional manifolds, using a wide variety of
techniques including gauge theory, geometric analysis,
pseudoholomorphic maps, knot invariants, surgery techniques, and
mapping class groups. Faculty at Michigan State University as
well as former students and postdoctoral assistants have taken
part in important advances in this rapidly progressing area, and
it is expected that future students and postdoctoral fellows will
continue in this direction.

To further stimulate research, the MSU Geometry/Topology Group
will initiate new programs for undergraduate and graduate
students and postdoctoral fellows. The key to these seminars is
the atmosphere of collaborative learning that has been fostered
by the Geometry/Topology Group over the last fifteen years. The
broader impact of this proposal will address the production of
research mathematicians and teachers of mathematics who are
interested in geometry and topology. The aim is to create an
environment which encourages all involved to become better
teachers, better expositors, and better researchers, and
encourages those entering mathematics to stay in the field.